Spectroscopic and Structural Studies of Primary Photochemical Processes in Photochemical Processes in Photosynthesis

The photochemical reaction center is the site in the photosynthetic membrane where absorbed light energy is converted into chemical energy. While recent biochemical evidence has supported the structural similarity between photosystem II and the bacterial reaction center, components in the photosystem I (PSI) reaction center complex remain more poorly defined. It is only in the past several years that well-characterized higher plant PSI preparations which retain the structural and functional aspects of PSI in vivo have been available. The PSI reaction center complex of oxygen-evolving organisms, which is the focal point of the current project, is less well characterized although it is known to be functionally different than the other complexes since it contains a low potential electron acceptor system. Dr. Malkin will examine the nature of the polypeptide subunits in the isolated PSI complex and the association of specific electron transfer carriers with specific subunits. The stoichiometry of the individual subunits within the complex and changes in the content of these subunits in response to environmental signal will also be defined.